The Science Studio: A Workshop Approach to Introductory Physical Science

This project focuses on a workshop-based approach to an introductory physical science course. An enhanced learning environment is being created that utilizes advanced technologies such as computers, networks, and digital media for student exploration and learning in physical science. The project adopts an inquiry-based approach to the materials that fosters student collaboration, practice of oral and written communication skills, and an appreciation for some of the fundamental principles of physics, chemistry, astronomy, and earth system science. Wherever appropriate, microcomputer-based laboratory techniques and digital multimedia are being used to enrich the learning experience and enable students to focus on building appropriate mental models of the scientific concepts being explored. Two sections (to be called The Science Studio) of a pilot physical science course are being offered in the workshop format, meeting twice per week for 2-hour sessions. One of the sections is offered within the university's honors program while the other has open enrollment. Widespread adoption of the workshop model after the pilot phase may affect in excess of 1,000 students per year.